Model Theory and Representation Theory

9972613
Herzog
Let L be a finite dimensional simple Lie algebra over an algebraically
closed field of characteristic zero. The classification of the finite
dimensional simple representations of L is one of the fundamental results in
representation theory. Herzog's project is to extend the classification to
the simple pseudo-finite dimensional representations of L -- a representation
is called pseudo-finite dimensional if in the language of L-modules it
satisfies the axioms for a finite dimensional representation. The project
involves describing the topology induced by the Ziegler spectrum on the space
of simple pseudo-finite dimensional representations of L. For the Lie
algebra of two-by-two matrices of trace zero, it is a compact Hausdorf space
the cardinality of the continuum, of which the finite dimensional simple
representations form an open, dense and discrete subspace.
A group is the mathematical concept used to study the structure of
symmetries of an object that may occur in physics or the other natural
sciences. In the mathematical theory of representations, the goal is to
study a group G by classifying all the objects -- the representations of G
--- of which G is a symmetry group. For many groups, this program has met
with stunning success by associating to G a Lie algebra L whose
representations mirror those of G, and then classifying the representations.
The objective of L. Herzog's project is to study the finite dimensional
representations of certain Lie algebras L, using the methods of mathematical
logic. The project focuses on the infinite dimensional representations X of
L that are called pseudo-finite dimensional. These representations are
virtually finite dimensional, in the sense that the limited power of
expression of the language being used cannot distinguish X from the finite
dimensional representations. In previous work, Herzog has applied the
Compactness Theorem of Goedel to show that there exist uncountably many
``simple'' pseudo-finite dimensional representations. However, a single such
representation has yet to be discovered, and part of Herzog's project is to
construct a concrete example.
***